Workshop on Landscape History and Ecological Succession; January 28-31, 1988; Durham, NC

This workshop will explore the interrelationships between historical patterns of landscape use and consequent variations in patterns in ecological succession. The workshop will be held 28- 31 January 1988 and will consist of formal presentations dealing with specific landscapes by historians and ecologists, as well as discussions and a field trip. Workshop goals include: 1. Facilitation of interaction among historians, historical geographers, and ecologists; 2. Evaluation of the economic, social, technical, and cultural factors that have influenced the history of land use on different landscapes; 3. Evaluation of the effects of variations in landscape history and landscape utilization on patterns of community succession and ecosystem recovery; 4. Consideration of the interactions between successional trajectories and patterns of land use; 5. Prediction of future trends expected in land use and succession; 6. and Critical analysis of ecological methods for reconstruction of landscape history. In addition to a formal report to the NSF on workshop findings, the meeting will produce a series of articles in professional journals.